International Travel Grants for Participation in 17th World Congress of International Political Science Association, Seoul, Korea, August 17-21, 1997

The American Political Science Association will provide travel grants to junior American scholars participating in the Seventeenth World Congress of the International Political Science Association. The World Congress will be held in Seoul, Korea, from August 17-21, 1997. The main theme of the World Congress is Conflict and Order.